Theoretical Investigation of the Origin of Shallow Slip Deficit in Large Strike-Slip Earthquakes

Slip inversions of geodetic data from several large (magnitude~7) strike-slip earthquakes point to coseismic slip deficit at shallow depths (<3-4 km), i.e., coseismic slip appears to decrease towards the Earth's surface. While the inferred slip distribution may be consistent with laboratory-derived rate-and-state friction laws suggesting that the uppermost brittle crust may be velocity strengthening, there remains a question of how the coseismic slip deficit is accommodated throughout the earthquake cycle. The consequence of velocity-strengthening fault friction at shallow depths is that the deficit of coseismic slip is relieved by postseismic afterslip and interseismic creep. However, many seismic events with inferred shallow slip deficit were not associated with either shallow interseismic creep or robust shallow afterslip. Hence the origin of shallow "slip deficit" remains uncertain. The goal of this project is to investigate whether inelastic failure in the shallow crust over an earthquake cycle can explain the inferred deficit of shallow slip. Evidence for such failure is emerging from geologic, seismic, and geodetic observations. The project will address this problem using numerical models of spontaneous dynamic rupture, including effects of both individual ruptures as well as earthquake sequences. One important question is to what extent assumptions in the kinematic inversions may bias the inferred slip distributions. In particular, inelastic deformation in the shallow crust is expected to temper coseismic strain near the fault, which may introduce an artificial deficit in inversions of geodetic data that are based on purely elastic models. This project will also evaluate how inelastic deformation during an interseismic period may affect the coseismic slip distribution. This will be accomplished by developing earthquake-cycle models that will self-consistently incorporate full rate-and-state rheology on the slip interface, elastic deformation, as well as yielding in the host rocks. Zones of inelastic deformation evolving over multiple earthquake cycles are expected to affect the prestress on a fault and, consequently, the coseismic slip distribution. The project will further explore how the time-dependent evolution of the effective elastic moduli due to damage and healing may affect the shallow slip deficit.

This research will result in an improved understanding of how inelastic deformation in the vicinity of active faults over hundreds of years influences the slip distribution of large earthquakes. The anticipated results will impact interpretations of fault slip based on geologic, seismic, and geodetic data. Results of this work will be also relevant to the current debate about the size and depth extent of fault-zone damage associated with major crustal faults. Furthermore, determining the origin of the shallow slip deficit is important for estimating seismic hazard, as suppression of shallow rupture could greatly influence strong ground motion in the vicinity of active faults.